Engineering Research Equipment Grant -- High Speed Data Acquisition System

A high speed data acquisition system is to be obtained and utilized in the support of research in compressible flow. The equipment will permit signal processing from rapidly fluctuating pressure sensors to extract the characteristics of separated high speed boundary layers.